Acquisition of a Single Crystal Charge Coupled Device Area Detector X-ray Diffraction System for Research and Education

9975623
zur Loye

This award will provide partial support for the acquisition of a single crystal Charge Coupled Device (CCD) area detector diffraction system, complete with computer, software and the low temperature attachment. The X-ray system will support several research programs, in the Department of Chemistry and Biochemistry of the University of South Carolina.

These include: 1) the crystal growth, structural and magnetic investigation of modulated, 4-D, composite oxides with hexagonal perovskite related structures; 2) the synthesis and characterization of sensitive peralkynylated organometallic complexes and larger segments of all-carbon networks; 3) the synthesis and characterization of semiconductor clusters, quantum dots, and quantum dot composite materials whose photophysical properties are being investigated for luminescence and possible lasing phenomena; 4) the structural characterization of self-assembling polymers that form highly coherent zeolite-like arrays for applications in absorption, separations, and catalysis; 5) the synthesis and structural characterization of coordination compounds containing tris(pyrazolyl)methane ligands of main group metals in order to develop new uniform bonding theories for this family of metals; the structural characterization of organic/inorganic composite structures for applications in adsorption and separation; and 7) the synthesis and characterization of high nuclearity mixed metal cluster complexes for use in the study and development of novel reaction catalysts.

The equipment will be used as an integrated research and graduate-level teaching instrument. Students will use it to collect data sets on crystals, solve structures, and for thesis research.
%%%
The instrumentation will significantly enhance current research and educational capabilities of faculty and students.
***